Dissertation Research: Monoamine Neurotransmitters as Factors in Behavioral Change

The vertebrate neuroendocrine system, using information derived from both internal and external environments, controls development, growth, and reproduction. The brain integrates this information and secretes neurotransmitters and neurohormones to alter pituitary function and bring about endocrine based events and behavioral changes. Such changes are very important in mediating major life events that help animals adapt to environmental changes. Because of the varied modes of reproduction that exist in teleost fishes, fishes are a useful system to look at how both the internal and external environments influence sex determination and sexual behaviors. One particularly useful mode of reproduction is a sexual plasticity known as sequential hermaphroditism where an individual can begin life as one sex, reproduce as that sex for at least one breeding season and subsequently undergo sex reversal and reproduce as the opposite sex. Such a change is accompanied by drastic changes in behavior. This system allows for investigation into the role of the brain in sex determination and sex-specific behavior. The purpose of the proposed research is to identify changes in monoamine neurotransmitters in the brains of a protogynous coral reef fish (Thalassoma duperrey) throughout the process of sex reversal and in relation to daily, semi-lunar and annual influences. Because there are relatively few vertebrates that exhibit a natural sex reversal once sexual maturation has been achieved, this system is an excellent model in which to look at changes in behavior and neurochemistry that accompany sex reversal and possible control mechanisms for such a reversal. This work will contribute to a better understanding of the relationship of neural control mechanisms for sex specific behaviors. By using animals which can act as both sexes in one individual at different times in the life history, one can gain a better understanding of how changes in sexual behavior may be controlle d in other animals, including humans. In addition the presence of diandry (two different male phenotypes, one being a male throughout the life history and the other being first female and then male) offers the opportunity to compare behaviors of two different types of males. The proposed work will provide information on the changes in monoamines associated with sex reversal and accompanying behavioral changes as well as some insights into possible cause-effect relationships. This system provides a unique opportunity for the study of neural correlates of sex determination and sexual behavior.